CAREER: Scalable Self Managing Multimedia Storage

This project develops an incrementally scalable and self-managing
platform for profuse media capture and storage using a distributed
architecture. The storage is tuned to exploratory environments where
video sensors and storage bricks are quickly deployed to profusely
capture the environment. The goal of this work is to balance the
storage robustness requirements, brick and network capacity. To this
end, this work addresses three important research areas: i)
self-contained lifetime abstraction that lets the sensors and storage
bricks to independently prune and manage the storage without
coordination with other system components ii) self-organizing overlay
mechanisms to locate candidate storage bricks for storing segments such
that the system can be incrementally scalable, and iii) self-management
mechanisms using storage replication, migration and rejuvenation to
provide the distributed storage. The impact of this research will be to
leverage the easy availability of multimedia sensors and extend the
relevancy of high fidelity multimedia capture in remote locations
without the associated management costs.